Degenerate Microlocal Methods in Geometric Analysis

Abstract

Award: DMS-9974395
Principal Investigator: Andrew Solow

As part of the activities in 1999 marking the end of Raoul Bott's
formal teaching career at Harvard and the 35th anniversary of the
statement and proof of the Atiyah-Bott, or Woods Hole theorem, a
meeting will be held October 8-10, 1999 at the Woods Hole
Oceanographic Institution. Shimura's original conjecture was an
extension of the Lefschetz fixed point theorem for holomorphic
maps and projective varieties, announced during the 1964 Summer
Institute in Algebraic Geometry at Woods Hole. Bott and Atiyah
realized that there should be a general formula for maps
preserving any elliptic operator, or indeed any elliptic complex,
and the theorem took shape. Their result and the index theorem
underpin the modern relationship between geometry, arithmetic,
and physics. Raoul Bott will give an exposition of approaches for
proving the theorem and generalizations that motivate current
research. Other lectures will cover the development of
pseudodifferential operators in index theory, which made possible
a bridge between analysis and the geometry of the problem.
Examples will include non-classical ones, like the Heisenberg
algebra of pseudodifferential operators on a contact
manifold. Atiyah-Singer formulas are obtained for certain
Fredholm operators, and also for a class of Fourier integral
operators defined by homogeneous symplectic automorphisms of a
cotangent bundle. Other lectures will explain the use of an
elementary Morse theory to derive natural Morse functions on
moduli spaces, connections of the Atiyah-Bott theorem with
physics, and the application of Lefschetz formula methods to the
Harish-Chandra theory of group representations.

Before this century there was no sharp line between physics and
mathematics. The divergence between the two fields accelerated,
and by the 1950's there was little in common, though physicists
had become increasingly adept at using what mathematics was
necessary for their theories. Since the 1970's there has been an
extraordinary convergence of mathematics and physics in the basic
theories of space and matter. The Atiyah-Bott fixed point
theorem, or Woods Hole theorem, is a landmark mathematical result
from the 1960's. This theorem has led to a great number of
applications to problems in mathematics, and is an active field
of research. To consider the present work and the future
possibilities suggested by the Atiyah-Bott theorem, a meeting is
planned for the fall of 1999, in celebration of this work and the
career of Raoul Bott. The implications of this research on the
problems common to both physics and mathematics will be explored.